Collaborative Research: Household Relations, Migration Decisions, and Employment Outcomes

SBR-9511134 SBR-9511129 SBR-9511108 Richard Bilsborrow Victoria Lawson Andrew Morrison U.N.C. - Chapel Hill U. Washington Tulane U. Collaborative Research: Household Relations, Migration Decisions, and Employment Outcomes This collaborative research proposal requests funding to conduct field research and quantitative and qualitative analyses of intra-household relationships, migration decisions by different household members, and employment outcomes in destination regions. The research questions and design are the result of collaboration among two economists, a geographer, and a biostatistician. The field area is several urban areas in Ecuador. The Ecuadorian setting is characterized by rapid urban population growth (including via in-migration) in the context of rapid, policy-induced, changes in economic structure. The field work entails three stages over 18 months: extensive surveys of migrant and non-migrant households in destination cities; household surveys in the main origin areas; and in-depth case histories for migrants in destination areas to complement and extend the survey findings through detailed examinations of the connections between life, household, and work histories. The results will: focus attention on household structures and dynamics as influences on migration processes; combine research traditions of migration as an individual, household and local-context phenomenon; and relate migration motivations to employment outcomes at the destination.